Dynamics of Low Energy Ion-Surface Collisions

This work is aimed at investigating the dynamics of interactions of 10 to 100 electron volt hyperthermal ions with surfaces. Topics to be addressed include projectile energy loss as a function of incident mass and scattering geometry; rainbow angle positions as a function of potential and projectile energy; peak broadening caused by vibrational motion in the target; sticking and embedding; and energy transfer and damage thresholds.